Computer Science Achievement Scholarships Project for Rural Appalachia

The Computer Science Achievement Scholarships project at Allegany College of Maryland is awarding scholarships to students pursuing an Associate Degree in Computer Science who demonstrate both academic potential and financial need. Special emphasis is being given to recruiting from women and first generation college attendees in the Appalachian region. Scholars are making use a rich range of student support structures including an individualized education plan for Scholars based on standardized testing and learning style assessments. The project is making an impact in undergraduate computer science education in the Appalachian area.